Experiments on Magnetic States of Liquid 3He

Experiments on liquid helium3 will be extended. In the extreme conditions of lmK temperature and 9T magnetic field, they shall study magnetically driven superflow, wave propagation of the spin/entropy hybrid and spin-polarization by means of a spin filter, all in the "Al phase". In addition, a) a systematic study, using fourth-sound techniques, will be conducted on the effect of He4 on the superfluidity of He3 confined in small pores; and b) they shall measure velocity and attenuation of the pure entropy second-sound wave in superfluid He3 using an improved Peshkov transducer technique.